Research Experiences for Undergraduates - REU: DIMACS-DIMATIA International REU Program

EIA-0138973
Roberts, Fred
Rutgers Univ. New Brunswick

Title: REU DIMACS-DIMATIA International REU Program

DIMACS, the Center for Discrete Mathematics and Theoretical Computer Science, headquartered at Rutgers University, proposes a three-part domestic and international REU program. The program will be co-sponsored by DIMATIA, the Center for Discrete Mathematics, Theoretical Informatics, and Applications, at Charles University in Prague, Czech Republic. The REU program we are proposing will be modeled after the highly successful programs we have already run and will have the following three parts: (i) A group of five students from all across the U.S. will participate in an 8-week REU program headquartered at DIMACS; (ii) A second group of five students from all across the U.S. will participate in the 8-week domestic REU program and then spend 3 additional weeks at DIMATIA; (iii) a group of five students from the Czech Republic will participate in the 8-week domestic REU program and then act as hosts at DIMATIA when the U.S. students go to Prague. The REU program will focus on the strengths that are joint between DIMACS and DIMATIA, and in particular on the fields of extremal and algebraic combinatorics, graph theory, computational geometry, logic and complexity theory, and combinatorial optimization.